SBIR Phase I: Carbon Nanofiber Reinforced Carbon Composite

This Small Business Innovation Research (SBIR) Phase I project will demonstrate the feasibility of fabricating carbon nanofiber reinforced carbon-carbon (C-C) composite by integrating catalytic nanofiber
growth and carbon deposition into a single operation. The main advantage of this process
is the ability to directly fabricate components on substrates at a high rate thus it avoids
the conventionally used lengthy C-C fabrication approach with multiple steps. As a result,
the manufacturing complexity, the process cycle time, and the cost will be greatly
reduced. In addition, since high density carbon and high strength carbon nanofibers are
engineered in an integrated form, the C-C composite is expected to have unprecedented
mechanical properties compared with conventional C-C composite.

Commercially this technology will increase the reliability and reduce manufacturing cost, thus making the
American C-C composite products more competitive in the world market. One immediate
application of this composite will be for aircraft brake components. The technology can
also be applied to many other applications such as computer hard disc media substrates
and the next generation medical implants.